Mathematical Sciences: K-theory, Trace Maps and the Free Loop Space

The main focus of this research will be on the relationship, via variously defined trace maps, between K-theory and the free loop space. Several basic problems in geometry, algebra and differential topology hinge on a better understanding of this connection. These include the isomorphism conjecture of P. Baum and A. Connes and those that it implies (e.g., the Novikov and Gromov-Lawson-Rosenberg conjectures), the Bass conjecture on the image of the Hattori-Stallings trace map for group rings, and the Milnor-Friedlander conjecture concerning the K-theory of a Banach algebra with coefficients in a finite abelian group. The free loop space also plays an important role in understanding the homotopy-type of the space of stable pseudo-isotopies of a manifold, and variants seem to be closely related to the integral relative K-theory of nilpotent ideals. The planned work builds on progress in these areas; in particular, the investigator's solution of the KABI and Karoubi conjectures (with Weibel), new information on the integral relative K-theory of spaces, and a formulation of the operator algebra K-theory of spaces (with P. Baum and A. Connes). Among the algebraic theories which make it possible to compute answers to topological questions about spaces are the various so-called K-theories. The essence of this project is to establish relations among these K-theories and between them and some other algebraic theories for dealing with topology.